Mathematical Sciences: Principles and Practices of Applied Statistics

The project is designed to follow up projects carried out under NSF Grant DMS-90-03216 (Data Analysis, Modelling, and Inference) and to intitiate and carry out research of the same types as under the previous grant. These projects are of two basic types. The first type seeks to develop new statistical techniques in the context of several case studies, with the goal of integrating tools of various sorts, including study design, data analysis, modelling, and inference (mainly Bayesian inference). The projects includeJ a study of estimating state level employment and unemployment rates, modelling and inference concerning dynamic patterns of hormone concentrations in blood plasma, a study of hospital ICUs, and other social , environmental or geophysical processes. The second basic type of study is theoretical analysis of methodological issues, including understanding and improving statistical methods in the face of low frequency time series behavior, addressing the logic of model selection, studying design and analysis issues under weighted sampling, studying the justification and computation of belief function inferences, and tracing the history of contentious issues in 20th century statistics, mostly centering on probabilistic inference. Statistical studies are essential contributors to scientific knowledge in virtually every branch of physical, biological, and social sciences. The nature of these studies is changing rapidly, in large part because computers have made possible the collection and analysis of large quantities of information, and also have revolutionized the study of the mathematical theories and laws that govern statistical phenomena. Consequently, there is a continuing and growing need to develop and assess the methods that statistical scientists rely upon to make sense of data and to package their findings for practical purposes, such as assessing long term trends in global warming, aiding doctors to make good decisions about medical treatments, or providing accurate and timely information about the economy for government poicymakers. A basic strategy adopted in the project is that technical tools should be developed in the framework of specific scientific problems, and through collaborative efforts with scientists actively working on such problems, in order to guarantee the relevance of the procedures and models developed. Also, since statistical methodology has features that are shared in common across very different fields of science, it is important to pursue a second strategy of addressing and improving problems that arise in the same form in these different fields. In statistics, these problems center around coping with uncertainties about measurements or about the consequences of decisions that might be taken on the basis of uncertain knowledge. The project addresses such problems through techniques that rely on the mathematical theory of probability. It is important to refine and clarify the principles and techniques that govern the selection and use of such mathematics.